Doctoral Dissertation Research in Political Science: Does Power Corrupt? An Experimental Approach To Explore the Origins of Corruption in Africa

Government corruption is widespread in Africa. However, as spectacular as scandals
involving corruption in the central government might be, it is the behavior of local officials that
most citizens directly experience, and it is at this level that government officials may be
especially susceptible given the lack of media presence and bureaucratic oversight. A culture of
corruption promotes short-term, selfish behavior and punishes behavior that citizens would
consider fair and oriented towards the common good, such as egalitarianism and trust. The
consequences of such behavior can be disastrous.

But what causes corruption? Is the widespread corruption in African politics the product
of political institutions or of the type of individuals who seek office? Do individuals prone to
corruption self-select into government positions or does holding office condition traits that
underlie corrupt behavior? Some researchers in political science assert that political institutions
are responsible for corruption in Africa. Others argue that Africa faces widespread corruption
because Africans are corrupt, that their culture embeds corruption in tradition and interactions.
According to the viewpoint of the former group, that of the institutionalists, corruption arises
after political officials take office. According to the latter viewpoint, the cultural viewpoint,
corruption is ever-present.

For my dissertation, I plan to test whether political institutions cause corruption using a
novel series of experiments with local-level political leaders in Zambia and Tanzania. Since
Zambia and Tanzania have similar national levels of corruption but different corruption
environments at the local level, they are compelling comparison cases. Designing research to
investigate the origins of corruption is difficult, since most of the existing data is based on
surveys of citizens, not based on the behaviors of government officials. Fortunately, there is an
alternative approach that I plan to utilize in my dissertation. I will gather real politicians to
observe their choices in person, allowing me to observe how choices are made and where
corruption arises. This method of data collection will allow me to observe the behavior of
government officials rather than studying corruption via third party surveys. I will recruit a
sample of politicians who ran for local government in Zambia and Tanzania. Some of the
subjects will have won the last election and some of them will have lost, providing me with
comparison groups. With carefully chosen comparison groups, any differences in behavior in my
experiments can be attributed to the political institutions associated with holding office.

This work holds promise for both policymaking and science. Donors and
international organizations believe that corruption undermines prosperous and peaceful
governments in Africa. While some members of this group believe that the creation and support
of well-designed political institutions can reduce the level and extent of unethical behavior,
others believe that such behavior is too culturally entrenched to change. There is little rigorous
research to inform these positions. My dissertation will help provide a theoretically informed and
methodologically sound examination of the foundations of corruption. Understanding the causes
of corruption can enable policymakers to create institutions designed to moderate its existence
and effects. The project also takes an important step forward in the use of politicians as
participants in the study of corruption. Hundreds of research projects have been designed to
tackle issues of politics, but none that we know of use actual politicians to investigate the
foundations of the choices of the political elite.